Annulus Placement Problems: Geometric Algorithms and Applications

The focus of this research is the development and implementation of
efficient algorithms for several problems involving optimal placement of
polygonal annulus regions with respect to a set of points. The optimality
criteria may be either maximizing the numbers of points contained by a
fixed sized annulus, or minimizing the size of the annulus necessary to
contain a fixed number of points. The annulus placement problems are
motivated by applications in geometric tolerancing, mobile robot
localization using range finding, and pattern matching problems arising in
computer vision. We are interested in both scaled and offset annulus
regions, translation and rotation, convex and simple polygons, and
off-line and on-line variants of the problem.